Mechanical Stress and Phase Change Induction in a Higher Plant

This is a Research Opportunities for Women Research Planning Grant, to enable Dr. Conover to initiate studies of morphogenesis in the daylily.